Kinetics of Anaerobic Degradation of Insoluble Subtrates in Continuous Microbial Cultures

The cellular mechanisms used to regulate the rate of degradation of insoluble vs. soluble forms of cellulose and starch by anaerobic bacteria in continuous cultures are the objects of this research. A variety of cellulolytic anaerobes, as well as some that are amylolytic will be analyzed in terms of: kinetics of growth, substrate disappearance, and product formation; the production of cellulase and cellobiase activities (for cellulolytic bacteria) and amylase and malatase activities (for amylolytic bacteria); the realtionships between enzyme activities and rates of substrate utilization; the influence of growth substrate on enzyme production (constitutive vs. induced); and effects of particle size and concentration on kinetics of insoluble cellulose decomposition. These studies will aid in understanding a very important aspect of the global carbon cycle--microbial growth on insoluble biopolymers.//